U.S.-Argentina Program: Planning Visit to Plan Volcanic Cloud Research

0112718
Rose

This U.S.-Argentina award will support a planning visit by Dr. William I. Rose of Michigan Technological University to collaborate with Dr. Jose Viramonte of the Universidad Nacional de Salta in Buenos Aires, Argentina. The goal of this project is to build a small support group interested in volcanic clouds of the Andean region and to create stronger collaborations.

This project will allow the monitoring of the movement of new volcanic products allowing the understanding of its effects. The long-term goal is to be able to send students to Salta to work with the local volcanic clouds group for several months.